CSR-DMSS, SM: Incremental Web-scale Data Processing

This project seeks to develop incremental processing abstractions and
technologies to address the approaching bottleneck in processing
unstructured web-scale data. Government, medical, financial, and web-based
services increasingly depend on the ability to rapidly sift through huge,
evolving data sets. These data-intensive applications perform complex
multi-step computations over successive generations of data inflows (e.g.,
weekly web crawls or nightly telescope dumps). Current approaches to
processing unstructured data have driven the development of massively
parallel "ad-hoc" data processing systems, such as MapReduce. However,
they process data in a snap-shot fashion, forcing massive re-computations
when even a small amount of new data arrives.

The core of the project consists of a cluster-based incremental data
processing system that overcomes these limitations. A key component is a
dataflow programming model that combines massive parallelism and flexible,
incremental computations. An incremental processing controller
orchestrates multiple backend data processing tasks, ensuring reliable,
consistent operation in the event of node failures. The project seeks to
shed light on the fundamental challenges and benefits of incremental
processing for ad-hoc data by using both industrial and e-science
applications. For example, through cooperation with Yahoo! Research, the
project will vet existing prototypes on real-world web-indexing dataflows
and large data sets. While in the short term the project provides a
platform for such highly skilled operators, the long-term goal is to
significantly advance the methods and abstractions that the scientific
community and commercial world use to tackle processing vast, dynamic data
sets.